Engineering Research Equipment: Reactive Ion Etcher and Plasma-Enhanced Chemical Vapor Deposition System for Heterostructure Materials & Device Research

A combined Reactive Ion Etcher (RIE) / Plasma- Enhanced Chemical Vapor Deposition (PE-CVD) apparatus will be purchased, for use in research in high speed electronic and optoelectronic devices. The equipment will support the research of at least nine faculty members. It is critical for at least eight on-going research projects, including the investigation of heterostructure bipolar and field- effect transistors, guided-wave and multiple quantum well modulators, patterned epitaxial growth, metallization research and atomic diffusion studies in III-V semiconductors. For future projects, the equipment will allow investigation of epitaxial structures and devices scaled to micron submicron dimensions. It provides a necessary complement to the advanced electron beam lithography equipment and epitaxial crystal growth available at UCSD.